Frontiers in Polar Biology

This award to the Polar Research Board is to establish a Committee on Frontiers in Polar Biology. The Committee will examine the opportunities and challenges of using modern technologies and methods of biology for conducting research on Arctic and Antarctic organisms. The committee will seek to identify the most important research questions that can be addressed using the new approaches and to recommend ways to facilitate and accelerate the transfer and use of genomic technologies to answer fundamental questions about Arctic and Antarctic organisms.
The Committee's work will result in a consensus report with conclusions and recommendations that will highlight the potential of these new areas and provide guidance about research opportunities.